CISE Research Infrastructure: Research Infrastructure for Parallel and Distributed Systems: Real-Time, Multimedia, and High-Performance

9623865 Chen, Marina Crovella, Mark Boston University CISE Research Infrastructure: Research Infrastructure for Parallel and Distributed Systems: Real-Time, Multimedia and High-Performance This award is for the acquisition of computing and communications resources to support the two primary research thrust of the Computer Science Department's experimental scientists. The disciplines of both high performance computing and digital multimedia are characterized by their need for distributed computing nodes connected by high-bandwidth interconnections. For high performance computing, distributed architectures are necessary to achieve sufficient price/performance when constructing gigaflops-capable machines. In addition, high-bandwidth interconnects provide the necessary data distribution paths to supply each processor with work. For digital multimedia, distributed systems allow multiple simultaneous users, and high-bandwidth interconnects are needed to supply the demands of multiple video and audio streams per user. The equipment will also enable Boston researchers to apply advances in high performance computing to multimedia, medical imaging research and their three WWW related projects, capitalizing on the unique collective strength of the department.